Fracture-Fluid Evolution in the Deep Portions of Submarine Hydrothermal Systems

This project will conduct spatial, thermal, and compositional analyses of fluid inclusions in plutonic samples from Ocean Drilling Project core 735B and a suite of metaplutonic and diabase samples recovered from the Atlantis II fracture zone. Microthermometric results of fracture-bound fluids in these ductily-deformed and hydrothermally altered rocks will be used to develop a model for fracture-fluid evolution in the high- temperature root zones of submarine hydrothermal systems associated with slow spreading environments.